International Travel: Third Meeting on Improved Oil Recovery; Rome, Italy; April 16-18, 1985

Travel support is provided to allow a participant to attend and present a paper at the Third European Meeting on Improved Oil Recovery in Rome, Italy on April 16-18, 1985. Very little work on CO2 foam is being conducted in academia in the United States, and it is important to the advancement of research progress to permit interaction of the participant with his international counterparts.